NeTS-FIND: Informational Meeting on NeTS

The proposal is about organizing an informational meeting for the NeTS new focus area on Future Internet Design (FIND). The informational meeting will help potential PIs to get background information on the focus area and understand its scope so they can better target their proposals.